Faulting under High Confinement: Experimental Investigation and Model Development

Of particular interest (and controversy) in geophysics and seismology are the mechanisms
controlling brittle-like failure at depths of several hundred km or more where deep earthquakes
occur. At these depths frictional sliding, the fundamental failure mechanism operating under the
lower confinements present at shallower depths, is nominally suppressed. We propose new
experiments and modeling aimed at elucidating the characteristics and the fundamental physical
mechanism(s) that underlie localized brittle compressive failure under high confinement.

Among the mechanisms that have been proposed to explain brittle-like failure under high
confinement, dehydration embrittlement and transformational faulting are the two most often
cited. They act to reduce confinement locally, in effect allowing low-confinement frictional
faulting to continue into the high-confinement regime. However, changes in earthquake seismic
character at greater depths are possibly consistent with a change in the physical mechanism of
rupture for the deepest earthquakes. An alternative mechanism, and the one we propose to
investigate, is plastic faulting. This mechanism is fundamentally different from the other two: it
is a non-frictional shear instability aided by adiabatic heating.

Spirited by past success in using ice as a model material for rock--Kirby's [1987] discovery
of transformational faulting, and our own discovery [Renshaw and Schulson, 2001] of what
appears to be a universal mechanism of low-confinement brittle failure--and encouraged by its
mineralogical simplicity and by its marked similarity to the behavior of rocks and minerals, we
propose a series of systematic compression experiments on granular ice to determine the effects,
if any, of confinement, grain size and strain rate on both the terminal failure stress and the failure
mode, with attention to microstructural detail. Preliminary experiments demonstrate a transition
in brittle-like failure mode with increasing confinement and that the high confinement faults
appear not to be friction controlled. Nor do they appear to be related to either mode II cracking,
dehydration embrittlement, or phase transformations. Our working hypothesis is that plastic
faulting is at play. In addition, we propose to develop quantitative models of high confinement
compressive failure, using as inputs direct observations of the physical processes.